Studies of Degenerate Stars

Among the most impressive strides in astrophysics over the last decade has been in the area of the physics of compact stars. Part of the reason for these advances has been the less visible but equally important progress made in the theory of their internal structure. In the past several years the Principal Investigator (PI) has been at the forefront of the application of solid-state theoretical physics to the construction of models of white dwarfs and neutron stars. This three-year award will provide support for the continued research in this general area, including a wide variety of topics ranging from neutron stars, to "brown dwarfs," to giant planets. This work will include research into the oscillation frequency spectrum (how these objects vibrate) as well as the "equation of state" in them which permits an estimate of temperature and pressure in their interiors.